NSF Workshop on Research Directions for Next-Generation Systems Design and Integration

This workshop is to explore and assess the state-of-the art in electronic system design, and identify the research needed by this field in light of exponentially growing complexity and functionality. Topics covered include CAD tools; hardware-software co-design; architecture simulation (functional and behavioral); verification of functionality, timing, and communication protocols; optimizing compilers; and operating systems. Additionally, the idea of fostering design methodologies that encourage reuse of components
not only at the physical or logic design levels but also at the functional levels will be explored. The workshop report includes: (1) a statement of the most pressing problems to solve within the next decade, (2)
recommendations regarding the style and kind of research to be conducted and suggestions to the community as to how to implement these recommendations.